Distributed Information Networks

This work investigates distributed information processing over
networks involving interference, noise, feedback and congestion.

Also studied are distributed data compression, communication in networks,
distributed computation, and the role of feedback in communication networks.
Most of these problems are advanced by using an information theoretic point
of view. The principal tools involve information theory, communication
theory and quantum mechanics.

The interesting role of quantum phenomena in communication is
investigated by studying the role of quantum entanglement
in distributed communication and computation, as well
as energy bounds for computation, the physics of quantum memory and a
development of the understanding of the physics of information.